Rapid Dissemination of New Calculus Projects

Detailed descriptions (syllabi, assignments, laboratories, exams, sample text material, preliminary assessment) of eight to ten new calculus projects are being prepared for publication. Project summaries of approximately 50 additional projects are included.